Parallel Computing in Combinatorial Optimization

This award is to support a postdoctoral associate to work in experimental computer science. The associate, Farid Alizadeh, will be working with Dr. Richard Karp at the International Computer Science Institute in Berkeley, California. The associate will be investigating parallel implementations of combinatorial optimization problems. Areas to be investigated include areas of interest to molecular biologists involving a generalized parallel implementation of the traveling salesman problem, areas with applications to circuit layout including parallel implementations of graph partioning and bisection algorithms, and areas of interest to operations research analysis including parallel implementations of new maximum flow algorithms.